Support for a Workshop on Tribology Needs in MEMS

9707282 Bhushan Support is provided for a symposium on the tribological research needs in the area of micro-electro-mechanical systems (MEMS). Experts in MEMS and in nanotribology will assess the state of the art and outline the most pressing needs for basic research to address these needs, including lubricant design, surface treatments, silicon nanotribology, and tribological issues in MEMS manufacturing. ***